Chemical Ionization of Laser Desorbed Peptides in a Fourier Transform Mass Spectrometer

This research, supported by the Analytical and Surface Chemistry Program in the Chemistry Division, will investigate ways to determine the sequence of fundamental building blocks of small proteins using a variant of mass spectrometry. Potential applications include diagnosis of some genetic diseases, and monitoring of metabolic irregularities. %%% Research, supported by the Analytical and Surface Chemistry Program in the Chemistry Division, will use laser desorption mass spectrometry and collision-induced dissociation to study the fragmentation of vaporized peptides. Fourier Transform mass spectrometry will allow many sequential collision/measurement cycles, so that one may step-wise decompose the peptides. Both atomic and molecular collision species will be tested.